Parameter Dependence in Weakly Hyperbolic Dynamical Systems

Abstract: DMS-0245359

PI: D DOLGOPYAT, U Maryland

Smooth ergodic theory studies the long-time asymptotics of those autonomous systems
which can be described by a finite number of parameters. Both analytic and
numerical results suggest that most of systems fall in one of the following
classes: elliptic (quasiperiodic) and hyperbolic (exhibiting
sensitive dependence on initial conditions). Systems close to elliptic systems
are described by the famous Kolmogorov--Arnold--Moser theory. By contrast
small perturbations of hyperbolic systems have been analyzed only
in a few special cases. This proposal aims at the general perturbation
theory for hyperbolic systems. This includes both the description of the
perturbed dynamics up to the certain specific times as well as computing equilibrium characteristics of the perturbed
system. Because there is sensitive dependence on
initial conditions, it is hopeless to deal with perturbations of individual
orbits. Rather, using the fact that hyperbolic systems usually have
strong stochastic properties, I will study parameter dependence of frequencies
of visits to a given domain in the phase space. My previous work on
statistical properties of hyperbolic systems is essential to this project.

During the recent years it has been understood that many systems
we encounter have chaotic behavior. On the other hand there
are several models of chaotic systems which can be exactly solved, which can
be analyzed mathematically. However it can be asked how much one
could trust predictions made on the basis of these models since
the specific features which allow us to precisely solve these models might
make them in some sense exceptional. In particular since chaotic systems are
very sensitive to initial conditions it is conceivable that a slight
change in the parameters of the system could drastically change their
behavior. The goal of the current project is to describe the conditions
when this drastic change does not happen. The main idea is that most
chaotic systems are so complicated that changing parameters does not
lead to an appearance of a new pattern of behavior but
rather to changing slightly probabilities of already existing patterns.